Workshop on Dynamics and Control, August 19-21, 2002, Los Angles, California

The rapid development of technology and its by-products require increased
precision in mathematical modeling of the relevant phenomena to make the
models more realistic and more readily applicable. This has required some
basic changes in the direction of research in many fundamental areas. The
scientists concerned have been involved for some years now in promoting the
use of advanced methods in Analytical Dynamics and Control, and in the
Control of Complex Nonlinear Systems. The workshop will involve experts both
in the purely dynamical aspects of such systems so that improved models with
more realistic predictions can be generated and experts in Lyapunov
formalisms for handling bounded uncertainties in system parameters so that
control actions can be made in the face of uncertainties. A range of
application areas is also intended to be broached, so that a crossover of
information between various disciplines that have the same types of
fundamental problems can be effected. Past experience has shown that such
crossover of information has led to new ideas and new collaborative research
projects among attendees of the workshop.

Eleven workshops have been held to date between 1986 and 2000. The first
five were held in the US at the University of Southern California, and they
helped to get together scientists and engineers mainly from the US and the
Pacific Rim, with occasional participation from scientists from other
countries. In an effort to initiate a technical exchange between US and West
European scientists and engineers who are working in this area, the next two
workshops were held in Vienna (Austria) and Ulm (Germany). The East European
scientific community was drawn into the following workshop in Sopron
(Hungary), which was co-sponsored by NSF and the Hungarian Academy of
Sciences. The 1997 workshop was held in Rio de Janeiro and was sponsored by
the Brazilian Ministry of Science. This workshop indicated that there were
numerous scientists working in the area of Dynamical systems and Control in
South America. The tenth workshop was held in Lambrecht (Germany) and was
co-sponsored by the Volkswagen Corporation and the National Science
Foundation. The large community of scientists and engineers working in South
America caused the International Organizing Committee to select Brazil yet
another time, and the 11th workshop was held in Brazil in 2000.

It has been decided by the International Organizing Committee to have the
next workshop in the US, in Los Angeles, bringing the venue after an entire
decade back to the location from which the workshops initiated. The workshop
will be held at the University of Southern California. One of the main
thrusts of this particular workshop is to focus more on bringing junior
faculty (especially women-faculty) and graduate students, so that they can
have a greater chance of increased exposure to the more established
community in the area of dynamics and control, and so that they can have an
opportunity to interact with their counterparts who are working outside the
US.

These workshops, each of whose proceedings have been published either as
special journal issues or as books, have led to the realization that there
are today a large number of scientists who are working in South America, the
former USSR, as well as both West and East European countries like Germany,
France, Russia and the Ukraine, in similar areas of dynamics and control. In
particular the last three meetings have clearly pointed out the need for
increased interaction between scientists from Europe, South America, and the
former USSR. There appears to be a substantial body of information gathered
in these countries that is yet unknown to US scientists and engineers. An
exchange of information in this important area with our colleagues in these
countries will be beneficial to the engineering and scientific community
here in the US. These workshops have led, in the past, to collaborative
research projects, not only among the US attendees but also between
investigators from the US and those from different countries; some of these
joint research projects have been funded by NSF. We therefore expect, as
before, that the forthcoming workshop will open up new avenues for
collaborative research and sustained long-term cooperation among scientists
and engineers through joint research projects. This, we hope, will be more
so true for this particular workshop, since its focus will be more on junior
faculty who may be more active and enterprising.